Restoration of Paleozoic and Mesozoic Vertebrate CollectionsStovall Museum

The vertebrate paleontology collection of the Stovall Museum, University of Oklahoma, constitutes a major US holding of such materials, is one of the best existing records of vertebrate evolution in the southern plains, and is in various respects a unique research resource. The Paleozoic and Mesozoic holdings, in particular, contain a number of type specimens and exceptional series, including a large collection of Oklahoma Permian tetrapods and singular dinosaur faunas or specimens. The collection was amassed during a short interval earlier in this century and was never properly curated; because of ensuing decades of inactivity and neglect, the specimens are currently inaccessible and thus not available for research purposes. The University has, in recent years, taken positive steps to redress past deficiencies in collections care, has re-established an active program in vertebrate paleontology, and has committed itself to increased levels of support for the future. This project will support recovery of the Paleozoic and Mesozoic vertebrates, which are most in demand for research purposes. This program will involve 1) installation of the appropriate specimens in proper storage units; and 2) specimen identification, conservation, reassociation with field data, and cataloging. Recovery of the collection will restore its capacity as a resource for research and education, will permit projected levels of institutional support to maintain high standards in collections management for the future, and will enable the collection to experience renewed growth.